Enhancing Middle School Science Through Community Service

This three year project, sponsored by the Social Science Education Consortium in cooperation with the Science Discovery Program at the University of Colorado-Boulder, will implement an interdisciplinary science and social studies program whose curriculum emphasizes the analysis of local community problems, presents an understanding of the science issues behind these problems and encourages student development of community action projects to help solve them. In the first two years teams from nine school districts, selected from the states of Arizona, Colorado and New Mexico, consisting of middle school science and social science teachers and school administrators, will study science and social science content in a four week summer session. The teams will carry out inservice projects to implement the program during the academic years following each summer session. In the third year two resource books for teachers, one for the life science curriculum and one for the earth science curriculum, will be prepared by the project staff. The content will be based in part on what was found to be successful in the program implementation process. Matching funds from the consortium and the school districts amount to more than 29% of the NSF grant.